Kentucky Advanced Technology Education Project

9454585 Newberry The Kentucky Community College System is establishing computer facilities at each of its fifteen widely separated community college campuses. These new facilities are being utilized for statewide reform of the mathematics algebra-level and calculus which form part of the curriculum for students in advanced technology programs. The labs will also support development of new two-year curricula in telecommunications and computer system management. A system of formal courses (taught using satellite facilities) to train faculty and staff to maintain the network system are catalyzing Continuing Education/Community Service programs in the use and administration of network systems and will develop the capability to offer a new associate degree program in network system administration. At the conclusion of this project approximately 40% of the System's intermediate and college algebra level mathematics courses will be taught as integrated courses in a collaborative learning environment using technology as a learning tool. While 15,000 students across Kentucky will directly benefit from the revised curriculum during the actual project period, the project will ultimately affect many thousands more students and ordinary citizens.